Collaborative Research: Research Infrastructure: Data Without Limits: Cyberinfrastructure for a Sustainable Environmental Data Future

Environmental science increasingly depends on the ability to discover, integrate, analyze, and reuse large and diverse datasets collected over decades by thousands of researchers. These data are critical for understanding ecosystems, biodiversity, water resources, and environmental change, yet their long-term scientific value depends on robust cyberinfrastructure that ensures they remain findable, accessible, interoperable, reusable, and preserved for future generations. This project will modernize the cyberinfrastructure of the Environmental Data Initiative (EDI), one of the nation's principal repositories for environmental and ecological research data, enabling researchers to more effectively share, discover, and reuse environmental information. The project will strengthen the nation's scientific data infrastructure by improving access to trusted, analysis-ready environmental data that support scientific discovery, education, environmental stewardship, sustainable food and natural resource systems, and evidence-based decision making. By enhancing data interoperability and developing AI-ready data resources, the project will also accelerate data-intensive and artificial intelligence-enabled research, as well as biotechnology innovation, thereby advancing the nation's capacity to address complex environmental and natural resources challenges while promoting the long-term progress of science.

The project will develop Phoenix, a cloud-native successor to EDI's existing repository infrastructure. Phoenix will replace legacy software with a modular microservices architecture implemented primarily in Python and designed for scalable deployment using containers, serverless computing, and cloud-native object storage. The new architecture will improve repository performance, reliability, security, scalability, and long-term sustainability while maintaining compatibility with existing user workflows and interfaces. The project will expand metadata capabilities through AI-assisted metadata generation, semantic metadata enrichment, and knowledge graph technologies that improve dataset discovery, interoperability, and machine readability. Phoenix will also support analysis-ready datasets, reproducible scientific workflows, benchmark datasets for AI applications, enhanced provenance tracking, and operational analytics. These advances will establish an extensible cyberinfrastructure that supports the evolving needs of data-intensive and AI-enabled environmental science while providing a model for the modernization of NSF-supported scientific data repositories.